Coordination and Learning in Market Entry Games

Coordination and Learning in Market Entry Games In non-cooperative games with multiple equilibria, a fundamental question is what causes players to expect each other to implement a specific equilibrium. Stated differently, it is important to understand what cues, in the context of the game, lead players to focus or anticipate one equilibrium outcome out of the multiplicity, and thus play so as to make their anticipations self-fulfilling. This study examines the possibility that in iterated games, coordination on a specific equilibrium may result through learning. To isolate the role of learning, other previously identified means of producing coordination (e.g., pre-play communication, equity considerations, and environmental cues) are controlled for.